Dissertation Research: The Effect of Plant Community Composition and Land-use Change on Soil Microbial Community Composition and Function

PROJECT SUMMARY
Land-use change and alterations of plant diversity and composition have been shown to
influence ecosystem processes. Until recently, however, there has been little evaluation of
the role of microbial community changes in mediating process change. Shifts in land-use
and plant diversity may alter the composition, and thus collective physiology, of soil
microbial communities, leading to differences in process rates. To understand more fully
the factors that influence microbial communities and their functioning, our research
addresses the following questions: 1) Does plant diversity and/or land-use influence soil
microbial community composition? 2) Do these changes in microbial composition
influence nutrient cycling rates? We are addressing these questions using an experiment
in Costa Rica that manipulates plant community composition and diversity as well as a
set of land-use sites, including forest and pasture. To address the first question, we are
examining microbial community composition using phospholipid fatty acid analysis
(PLFA) and terminal restriction fragment length polymorphisms (T-RFLP). PLFA data
suggest that microbial communities differ significantly across plant diversity and land-
use gradients. We request funds to proceed to the crucial second question and test, using
controlled laboratory experiments, whether soils with distinct microbial communities
differ in two critical ecosystem functions: nitrification and litter decomposition.